Symplectic Topology

DMS-0072512
Dusa McDuff

McDuff will continue studying the structure of symplectic
manifolds and of the group G(M) of diffeomorphisms that
preserve the symplectic structure on a given manifold M.
Working together with Francois Lalonde, she recently
discovered that these diffeomorphisms do not twist the
manifold topologically very much. Indeed, using ideas
from quantum homology, they have shown that the homotopy
groups of the Hamiltonian subgroup H of G(M) act trivially
on the rational homology of the underlying manifold M. The
conjecture is that any fiber bundle with structural group
H is a product as far as its rational cohomology is concerned.
She also plans to study other topological implications of the
existence of quantum homology, in particular its consequences
for the Flux conjecture.

A symplectic structure is a very basic structure on space
that underlies the equations of classical physics. They
have become very prominent recently because of their
appearance in modern theories of duality, especially in
the "mirror symmetry" phenomena of high energy physics. Mathematically, they are very interesting and help in
understanding 4 dimensional spaces (curved space-times).
Recently McDuff has focussed her attention on studying
the different ways that the points of a space can
move while still preserving this structure. Working with
a collaborator, she has found that some ideas coming from
string theory (known in the field as "quantum homology")
show that spaces with symplectic structures are much more
rigid than ones without, and cannot be moved and twisted up
very much. She intends to pursue this line of questioning
during the period of the grant. Many very interesting
symplectic rigidity phenomena have been discovered, but
there are still plenty of open questions.